Curvature and Topology

9803188
Stolz
The investigator studies the relationship between curvature and
the topology of manifolds. In particular, he continues his work
concerning the existence and the classification (up to concordance) of
metrics of positive scalar curvature. Some of his earlier work shows
that these questions boil down to determining an abelian group R that
depends only on the dimension of the manifold M under consideration,
its fundamental group, and its first and second Stiefel-Whitney classes
(e.g., this group acts freely and a transitively on the set of positive
scalar curvature metrics on M). The role of R is reminiscent of the role
of Wall's surgery obstruction group in the classification of manifolds up
to diffeomorphisms. The investigator hopes to show that a periodic
version of R contains as a direct summand the K-Theory of a C*-algebra
associated to the data. He hopes to find invariants for the `non-periodic'
part of R by exploiting the minimal hypersurface method for studying
positive scalar curvature metrics. Concerning other types of curvature,
the investigator is pursuing his conjecture that the existence of a
metric of positive Ricci curvature on a spin manifold M with vanishing
first Pontryagin class implies that the Witten genus of M is zero. He
hopes to prove this conjecture by constructing a Dirac type operator on
the free loop space of M and analysing its Weitzenbock formula.
Relating geometric features of a manifold M to its topology is the
central problem in global geometry. Here `geometric' refers to
quantitative features of the manifold; e.g., the scalar curvature that
associates a real number s(x) to any point x in M; this number is a
measure for how the volume of small balls around x compares to the
volume of a ball of the same radius in Euclidean space. The `topology'
of M captures the qualitative features (like the number of holes);
these don't change when M is `deformed' (think of squeezing a balloon).
Often, as in the case of scalar curvature, the basic connection between
the geometry and the topology of a manifold is made by studying
differential equations on M. It is an exciting possibility that new
relations between the geometry and the topology of M might be obtained
by studying similar differential equations on the infinite dimensional
space of loops in M; this makes contact with stochastic analysis and
with physics (`string theory').
***